SBIR Phase II: Novel, Noninvasive Comprehensive Aquatic TOol (CATO) for Sediment Management in Waterways

The broader impact/commercial potential of this project represents a major paradigm shift in the methodology by which waterways can be maintained for optimum usage and water quality. Instead of the status quo in which water quality is only periodically tested and sediment buildups are only removed in massive quantities that can shock sensitive aquatic ecosystems, the system under development offers regular water quality monitoring and regular sediment removal at volumes less impacting to aquatic habitat. Shifting the paradigm of waterway maintenance into a more regular process will allow for reduced pollutant levels in waterways as pollutants are promptly removed instead of continuing to accumulate toxins which, in turn, will increase property values, utilization, and income within the marina industry. Additionally, embedded sensor intelligence and continuous waterway monitoring will grant the dredging regulatory agencies increased visibility and understanding of the health of the marine life in the waterway and allow them to more closely monitor environmental violations. With widespread adoption, the innovation could impact the technology area of water robotics and potentially have far reaching benefits that assist with water and energy security by keeping the inlet canal's reservoirs that comprise our society's infrastructure clean and running at peak efficiency.

This Small Business Innovation Research Phase II project aims to continue development of an intelligent suction tip via a robotic platform for use in year-round sediment removal in waterways while minimizing harm to marine species. The research seeks to contribute to the knowledge base of marine life behavior and water-pollutant interactions through addressing the need for waterway technologies designed specifically to satisfy the requirements of waterway owners while being sensitive to marine life needs. The project activities include continued technical development and refinement of the environmental niche modeling and suction tip systems whose proof of concept was developed during Phase I activities, refinement and ruggedization of supporting subsystems in preparation for pilot testing, conducting closed environment testing, conducting pilot testing in a local operational waterway, determining a feasible manufacturing roadmap, and conducting pilot testing in an operational waterway in San Francisco Bay while closely documenting its performance and dredged material to determine marine species impact for report to the regulatory agencies. Akabotics expects to prove that its innovative approach has only a minimal impact to marine organisms while providing regulatory agencies with increased oversight and will lay the groundwork for approval to work outside of currently prescribed environmental work windows.